Mirror Principle and Modularity

Abstract

Award: DMS-0072158
Principal Investigator: Bong H. Lian

This project addresses problems in three closely related areas in
the context of mirror symmetry and duality. As a continuation of
current joint work with K. Liu and S.T. Yau, Lian proposes to
both generalize and specialize their theory ("mirror principle")
for studying characteristic classes of vector bundles on a stable
map moduli space. First, this work has thus far considered convex
projective manifolds. Dropping the convexity assumption is
important if one wishes to consider general Calabi-Yau
manifolds. Part I of this proposal outlines an approach which is
expected to lead to the full generalization of mirror principle
in in genus zero. The main new input here is a way to combine the
difficult machinery of virtual cycles and the many ingredients of
the mirror principle. Second, the mirror principle can be
specialized to surfaces and many new questions which have
recently arisen in local mirror symmetry, as well as enumerative
geometry on surfaces. In the former case partition functions of
a given genus are related to modular forms whenever the
underlying surface is elliptic. In the latter case, enumerating
curves of a given genus with suitable incidence in a surface also
yields modular forms. This project seeks to understand modularity
from the point of view of characteristic classes of vector
bundles on stable map moduli spaces. For positive genus, the
mirror principle requires yet another generalization. In Part II
of this project, Hosono, Lian, Liu and Yau will examine these new
questions. In recent joint work of Hosono, Lian and Yau, they
have settled the problem of constructing the ubiquitous large
radius limit for the "universal" family of Calabi-Yau
hypersurfaces in a toric manifold. In Part III Lian, Todorov and
Yau will study this limit for more general families.

String physics is an ambitious effort to unify all the
fundamental forces of nature. A remarkable prediction of String
Theory is that nature apparently allows for many different
versions of spacetimes. A major current problem in string
physics is to understand how a plethora of apparently different
spacetimes are related, often in an unexpected and remarkable
ways, under the rubric of ``String Duality''. Mirror symmetry is
a special yet nontrivial case of String Duality. Though they come
in vast variety, the spacetimes in questions are still highly
restricted. They turn out to be a class of geometrical objects,
known as Calabi-Yau manifolds, which have been studied by
mathematicians for over 100 years. Physicists have discovered
that string theories associated to certain pairs of Calabi-Yau
manifolds ("mirror pairs") are equivalent. This project aims at
understanding the geometry of these mirror manifolds from the
mathematical point of view. A constant exchange of insights and
feedback between physicists and mathematicians on mirror symmetry
and other issues has been a hallmark of String Theory in its last
20 years of development.